Electron Transport on Hydrogen

The effects of disorder on the transport properties of a non- degenerate two dimensional electron gas will be studied. The primary emphasis of the research will be to characterize the strong disorder limit (i.e., strong localization regime) as one goes from low carrier densities to high carrier densities, where the electron gas in known to solidify into a Wigner crystal. The ability to control the electron density over several orders of magnitude gives one the unique opportunity to "turn on" interaction effects at a given level of disorder. The work will represent an important contribution to the field of localization by probing regions of parameter space that are generally inaccessible to the much more widely studied semiconducting and metallic systems. The effects of disorder on the superfluid density in thin films of helium deposited on hydrogen will also be studied. The work will provide the first measurements of the onset of superfluidity on well characterized (i.e., from electron conductivity measurements) and purposely disordered surfaces.